Derivation, Modeling, and Analysis of Access Control Systems

This project will develop models and analysis algorithms for access control systems. Architectures for implementing these systems will also be investigated. Access control systems mediate (i) operations on data objects (e.g., user A reads file F), as well as (ii) control operations which alter access permissions (e.g., user A authorizes user B to read file F). In current systems all, but the most rudimentary, control operations are typically centralized in a single authority (viz., the system administrator). This project will investigate systems where such authorization is decentralized and itself subject to change. Harrison, Ruzzo and Ullman (HRU) proposed a general model for this purpose. Unfortunately, their model has extremely weak safety properties (i.e., it is undecidable or computationally infeasible to determine whether a given user can ever acquire a particular privilege). Subsequently a number of models with varying expressiveness and analyzability were published. Recent results by Ammann and Sandhu for their Extended Schematic Protection Model strongly indicate that the pessimistic results of HRU can be circumvented. This project will build on previous work by the principal investigators. It will develop and analyze new access control models with the objective of analyzing their safety properties, expressive power, fundamental constructs and implementation issues.